Mathematical Sciences: Conference on Operator Algebras; October 10-14, 1989, University Park, PA.

This project will support the Conference on Operator Algebras to be held Occtober 10-14, 1989 at Pennsylvania State University. The main themes of the conference will be on operator theory, mathematical physics, and low dimensional topology. The conference will be part of a month-long period of research activity at the university focused on these areas.